Radioanalytic Imaging Core Facility

Radioanalytic imaging needs of researchers at the University of Massachusetts Medical Center have overwhelmed the limited capabilities of the Betascope blot analyzer and our scintillation counters. Researchers now require substantially more capacity for obtaining high resolution, quantitative analyses of radioanalytic data than is available with existing facilities. The PhosphorImager facility requested in this proposal includes a laser scanner, high efficiency, high resolution storage phosphor screens, an image analysis work station, optical drive back up system, and a grey scale printer. We anticipate that this facility will expand our capacity for radioanalysis a minimum of four to six fold to meet current and future needs. In addition to increasing the speed and efficiency of standard analyses, this unique storage phosphor system will allow us to convert qualitative assays to quantitative assays and will also permit us to carry out novel experiments requiring sensitive, high resolution analyses of large areas that are impossible with existing facilities.